REU Site at Nevis Labs, Columbia University

Columbia University will provide an REU (Research Experience for Undergraduates) Site at the high energy physics Nevis Lab located on the campus of Columbia University. Stipend and housing expenses will be furnished for 10 undergraduate students, for the 10 week summer research program. The broad Nevis research program seeks to address the most pressing issues of high energy physics. The major research programs include the ATLAS experiment, D0, NuTeV/BooNE, ZEUS, and HiRes experiments. The strength of this broad experimental program, coupled with the Nevis infrastructure of world class electronics design and mechanical construction, forms a unique environment with opportunities for training of students and young physicists. As these experiments are at different stages in their development, Nevis provides the opportunity for students to gain experience in all aspects of high energy physics experiments, from initial conceptual detector design, hardware development and construction, to simulation software development and data analysis.